Nuclear Magnetic Ordering in Metals and Superfluid Four-Helium in Porous Media

Research into two main areas is proposed. (1) Nuclear magnetic order will be investigated below 100 nK in Ag, Au and Rh. AC magnetic susceptibility and low-frequency cw-NMR measurements will be used to characterize the phase diagram. (2) A torsional pendulum technique will be used to study the superfluid density and the energy dissipation of helium-four confined in various geometries, including Zeolite, silica gel and Vycor glasses. Effects of pore size, substrate randomness and flow on the superfluid transition will be examined.